Industry/University Cooperative Research Activity: Microparticle Motion Induced by Chemical Signals

The phenomenon of microparticle motion induced by chemical signals has far-reaching implications in a number of chemical and biological transport processes as well as potential application in analytical and separation techniques. The theoretical analysis of this gradient-driven particle motion is a topic of considerable current interest. Experiments will be performed to demonstrate the applicability and limitations of the present theory.11/01/84; $63,335; 12